Dendroclimatic Characterization of Southwestern Paleoclimate During the Last 2000 Years

Drs. Dean and Graybill will continue their dendroclimatological work to reconstruct past climates in the United States Southwest. Because the size and configuration of annual growth rings in trees are affected by changes in rainfall and other environmental variables, it is possible to use them to reconstruct past climatic change. Also, since tree rings are deposited on an annual basis, they permit an accurate dating of this change. Drs. Dean and Graybill will add to an already substantial data base through the collection and analysis of additional cores from living trees in Arizona, New Mexico, Utah, and Colorado. They will correlate this information with data obtained from weather stations and apply the results to older samples derived from archaeological contexts. They will reconstruct changing annual and seasonal variations in precipitation, temperature, growing season length, the Palmer Drought Severity Index, and changes in stream flow. The Southwestern United States saw the rise, in pre Hispanic times, of complex cultures which covered large portions of several states. These archaeological complexes expanded and contracted over time and the largest disintegrated before the arrival of the Spanish. Archeologists have hypothesized that these cultural changes were in fact responses to variation in the environment and that the Southwest offers an excellent laboratory to study the relationship between environmental change and human response. The tree ring data will significantly aid in analyses of this kind. This research will be important not only for archaeologists, but also paleoecologists and scientists interested in climate dynamics and changes. Changes in temperature and precipitation which are of such concern today occurred many times in the past. It is important both to understand them and to learn how human societies responded.